Collaborative Research: Developing Leaders, Transforming Practice in K-5 Mathematics: An Examination of Models for Elementary Mathematics Specialists

Minimal rigorous research has been conducted on the effect of various supports for quality mathematics instruction and providing guidance on the development and use of Elementary Mathematics Specialists (EMSs) on student achievement. Portland Public Schools, Portland State University, and RMC Research Corporation will study the Developing Leaders Transforming Practice (DLTP) intervention, which aims to improve teachers' instructional practices, increase student mathematics understanding and achievement. The project team will evaluate the efficacy and use of EMSs by testing 4 implementation models that consider the various ways EMSs are integrated into schools. DLTP builds on EMS research, investigating EMSs both as elementary mathematics teachers and coaches by articulating 4 models and examining their efficacy for both student and teacher learning. This study has the potential to provide benefits both within and beyond PPS as it informs the preparation and use of EMSs. Determining which model is best in certain contexts provides a focus for the expansion of mathematics support.

DLTP enhances the research base by examining the effect of teacher PD on student achievement through a rigorous quasi-experimental design. The project goals will be met by addressing 4 research questions: 1) What is the effect of the intervention on teacher leadership?; 2) What is the effect of the intervention on teachers' use of research-based instructional practices?; 3) What is the effect of the intervention on a school's ability to sustain ongoing professional learning for teachers?; and 4) What is the effect of the intervention on student mathematics achievement? Twelve elementary schools in PPS will select elementary teachers to participate in the DLTP and adopt an implementation model that ranges from direct to diffuse engagement with students: elementary mathematics teacher, grade level coach, grade-level and building-level coach, or building-level coach. The research team will conduct 4 major studies that include rigorous quasi-experimental designs and a multimethod approach to address the research questions: leadership study, instructional practices study, school study, and student achievement study. Several tools will be created by the project - a leadership rubric designed to measure changes in EMS mathematics leadership because of the project and a 5-part teacher survey designed capture EMS leadership skills, PCK, use of research-based practices, and school climate for mathematics learning as well as implementation issues.